Multi-Disciplinary Real-Time and Embedded Systems Lab

Computer Science (31) It is generally recognized that programmable computing elements are increasingly appearing in devices used by the populace. The software in these devices has constraints that are markedly different from software designed for a general-purpose computer. Most computing curricula deal almost exclusively with developing software for that general-purpose class. This project enables our undergraduate students to study issues related to developing real-time and embedded software systems in a "studio" format classroom-the new Real-time and Embedded Systems Lab. The adaptation of exemplary real-time and embedded systems courses to RITs academic environment and the equipping of the new laboratory are the key activities of this project. Exemplary course models from Arizona State University and Southern Polytechnic State University are used in this project. These institutions are also involved in the adaptation process and the evaluation of completed work. Increasing student's interest and improving their qualifications for developing real-time and embedded software systems is the goal. The target audience is upper-level undergraduates in our Software Engineering and Computer Engineering programs.